Conference on Algorithmic Problems in Groups and Semigroups, May 11-15, 1998

Meakin 9803828

This award supports a conference on "Algorithmic Problems in Groups and Semigroups "
at the University of Nebraska. The conference will consist of twenty lectures and selected
short contributions. Efforts are being made to include graduate students and young investigators .

The field of algorithmic group theory is an interface area between group theory---the
mathematical study of symmetry---and computation. The study of such algorithms in
groups will lead to a better understanding of "complexity of computation."